Funding Request for the Organization of a Short Course on Spin Transport Physics and Devices during the 68th Device Research Conference. Held at the Univ. of ND June 21-23

Intellectual merit.
This proposal requests partial funding support to organize a short course on
Spin Transport and Devices during the 68th Device Research Conference. This short course aims
to introduce the device physics community attending DRC to the new science and potential
applications of spin electronics and optoelectronics. It will bring together world experts in spin
science and technology and it will foster student participation.

Broader Impact. The proposed short course on spin transport and devices will provide student
participants with an opportunity to gain exposure the basic physics and potential engineering
applications of spin devices. The timing of this workshop is perfect for this generation of
students to learn how the new science and technology of spin devices is developing. These
lessons will be useful beyond spin electronics, as these students will be able to apply them to
future new materials and technologies that they will encounter during their career. Special effort
will be made to involve female and minority students in the short course by advertisement and
active recruitment. In addition, the conference proceedings will be available online through the
IEEE IEEExplore which will make them accessible world-wide.